Integration of Multicycle, Load Dispatching, and Reliabilityin Reload Fuel Optimum Design

Research is conducted in nuclear fuel menagement and electrical generation dispatch through the use of supercomputers. The research utilizes the capability of a supercomputer to provide for large-scale optimization of multi-cycle, nuclear-reactor core-reload design. The research also involves electrical power system intergration and generating unit reliability. An important objective is to incorporate realistic core physics modeling into the optimization search procedures. A sophisticated nodal code is to be converted to vector form for this work. The objectives are pursued with the initial focus upon using accelerated direct-search techniques for core-reload optimization. Also, fixed absorber loading is to be an additional degree of freedom in the modeling. Simplified utility system intergration and reliability models are incorporated into the optimization procedure. A sensitivity study is also carried out to learn the level of modeling detail that is significant for these parameters.